2018 Shanks Workshop on Mathematical Aspects of Fluid Dynamics

This award provides funding for participation in the conference "2018 Shanks Workshop on Mathematical Aspects of Fluid Dynamics" that will be held March 24-25, 2018 at Vanderbilt University.

The conference focuses on recent developments in Analysis, especially in the fields of partial differential equations and mathematical fluid dynamics. A number of distinguished mathematicians have agreed to attend and speak at this conference. This award gives early career researchers, members of underrepresented groups, researchers not funded by NSF and the like an opportunity to attend and participate in this conference. The organizing committee will strive to make this funding opportunity known to target groups through a number of different activities. More information will be made available at:

https://my.vanderbilt.edu/shanks2018/